Proposal for a Five-Day Conference: Challenges for Nonlinear PDE and Analysis

This award provides funding to help defray the expenses of US participants, especially women, graduate students, postdocs, and junior faculty, in the international conference "Challenges for Nonlinear PDE and Analysis" that will take place from June 20-24, 2011, at the Ecole Normale Superieure in Paris, France.

This conference will focus on a variety of topics in the theory of partial differential equations (e.g., calculus of variations and optimal transport; qualitative properties and viscosity solutions of parabolic and elliptic PDE; dynamical issues for dissipative, dispersive, and fluid equations; front propagation and transport in mechanics, physics, and biology). All of the topic areas cited in the proposal are central to analysis and extremely active subjects of current research. The format of the meeting is such that young people will have ample opportunities to speak and be otherwise engaged in the various conference activities.